Light Propagation in Highly Confined Dense Atomic Vapors

Professor Knize will use this SGER grant (small grants for exploratory research) to investigate the optical properties of alkali vapors at very high pressure. The technique is to make ultra-thin cells (less than one micron in thickness) filled with alkali vapor. Light transmission spectroscopy will be used to study predicted high-pressure transparency as the absorption coefficient reaches a constant value with increasing pressure.